Mathematical Sciences: Singularity Theory and Gravitational Lensing

9404522 Petters The research entails applications of concepts in differential geometry and singularity theory (mainly caustics) to the study of deflection of light from distant sources where matter intervenes. Such gravitational lensing gives insights into distributions of matter within various types of galaxies. The research has potential applications to theoretical astrophysics, astronomy and general relativity. ***